Studies of Metastable He(23S) Atom Interactions Extending toVery Low Temperatures (Physics)

The work to be carried out comprises the following topics: 1. The experimental Study of metastable helium atoms and molecules at extremely low temperatures. 2. Interactions of helium metastables with liquid helium surfaces. 3. Magneto-optical trapping of atomic helium metastables. 4. Penning ionization dynamics. 5. Further development of polarized electron sources.